SGER: Opto-microfluidics: Containerless, Optically Controlled Microscale Fluid Management

CTS-0201610
Michael Schatz
George Institute of Technology

This is a one-year exploratory program to study the use of thermocapillary-based opto-microfluidics with water based samples. It is a "proof-of-principle" study to determine whether evaporation effects adversely affect the intended motion of such fluid samples by the proposed opto-microfluidic techniques. Experiments will be focused on aqueous microdroplets on immiscible liquid substrates. The effect of biologically-based surface-active agents on the motion of the microdroplets, and the metering and mixing of such samples by the proposed technique will also be studied.